Mathematical Sciences Computing Research Environments

9508415 Thompson The Department of Mathematics and Statistics at Hunter College, The City of University of New York, will purchase a workstation, X-terminals, and a postscript laser printer, which will be dedicated to the support of research in the mathematical sciences. The equipment will be used for several research projects, including in particular: l. Computing the v1-periodic homotopy groups of SO(n). 2. Computing differential Galois groups in Hamiltonian dynamics, determining lax pairs of matrices in Hamiltonian systems, and normal forms in graded Lie algebras. 3. Studying amalgamated product decompositions of one-relator groups with at least three generators. 4. Computations of the homology of subquotients of the Lambda algebra, and determining relations among homology operations in the Morava K-theory of infinite loop spaces.